Environmental Issues for Model City, USA

The College of Science and Mathematics at Southwest Missouri State University will initiate a four.week, residential Young Scholars project in Mathematics for 30 students entering grades 8,9. Participants will design a landfill for a hypothetical city called Model City, USA. Emphasis will be on problem solving and mathematical modeling. Trips to Monsanto and McDonnell Douglas will be conducted to provide participants interaction with scientists and engineers at work.